The Korea-U.S. Science and Engineering Summer Camp

0208632
Snyder

This award supports a pilot Korea-U.S. science and engineering summer camp for high school students. The camp is organized as a joint effort between the American Association for the Advancement of Science (AAAS) and the Korea Science Foundation, with partial funding for U.S. participation from the Korea-U.S. Science Cooperation Center and the National Science Foundation. The pilot camp in July 2002 in Korea will involve 21 American students and 7 adult supervisors/mentors. This program will provide an opportunity for American participants to join with Korean students and researchers in a hands-on science, technology, engineering and mathematics research experience. The outcome will be early exposure to research experiences, involvement in innovative projects developed by teams of student participants, learning about the research process and careers, improved awareness of international scientific and engineering cooperation, and increased understanding of how research is approached in a different society/culture.